Minority Postdoctoral Research Fellowship

This is a minority fellowship travel award for exploratory visits to the University of Baltimore, University of Virginia, and Princeton University and to attend and meet with potential mentors at the American Political Science Association meetings in Chicago. In these visits the PI will make additional contacts necessary for the conduct of her planned research on the nature of political ideology among African-Americans.